A Seminar for Chicago Public High School Teachers of Chemistry

Sixteen teachers from Chicago, all inner city veterans who work primarily with minority students, will be selected to attend a four-week summer science seminar in chemistry. The seminar, to be held at the University of Chicago, includes a set of lectures and laboratory exercises with full regard to giving the participants material which can be immediately put to use in the laboratories of Chicago Public Schools. Laboratory experiences, chemical demonstrations, the use of computers in a chemistry lab as well as the unique strategies required to teach chemistry effectively will be the foci of the seminar. Eighty percent of the cost of the project is borne by private foundations and the University of Chicago.